Applications of Field Theory in the Early Universe

Theoretical research in cosmology will apply techniques and insights from elementary particle physics and from string theory. String theory seeks to describe all the fundamental forces of nature, but its very difficult to test at currently accessible energies. The cosmological research will include studies of the idea that the universe contains regions (`bubbles`) in which the energy density is less than the critical value needed to stop the universe from expanding forever. These bubble models are the only known predictive models for a universe with subcritical energy density, and so it is important to calculate their detailed consequences and properties to compare with the data, which will soon be good enough to determine the universe's energy density. Also, many of these subcritical models (and more general cosmological models) probe high energy scales, and thus may provide significant tests of superstring theory.